Project Connect

DUE 9453620 Title: Project Connect Project Connect is a cooperative effort of Illinois State University (ISU), Eastern Illinois University (EIU), and Western Illinois University (WIU) to develop a network of universities, community colleges, and public schools across Central Illinois devoted to the improvement of teacher education activities in the region served. Specific efforts are targeted in the project goals to increase the active role of faculty from pure and applied mathematics and science in the teaching/learning process of prospective and inservice teachers and to further communication among all parties with an interest in mathematics and science education in the schools and in teacher education. The project is providing for (a) a policy conference for school administrators; (b) development of at least two new courses in mathematics and science for prospective teachers of elementary and secondary school mathematics and science on each of the three university campuses; (c) creation of regional groups of university, community college, and school faculty to plan and develop better programs of teacher education for each of the three regions (ISU, EIU, and WIU); (d) development of distance education methods for providing assistance to schools; and (e) dissemination of previous and currently developed materials for teacher preservice education and faculty development for practicing teachers.